Mathematical Sciences: Topology, Geometry and Physics

Four investigators will analyze a range of geometric problems from theoretical physics, topology, and algebra. The principal investigator will focus attention on the rigidity "theorems" of Witten, new functors on Riemann surfaces related to knots on 3-manifolds, and stable bundles. A second geometer/theoretical physicist will investigate the relationship between the topology of low dimensional manifolds and gauge theories. "Bosonic" and analytic analogues of certain "fermionic" constructions arising from BRS cohomology will be the focus of study for a third investigator. And an algebraic geometer will investigate the structure of the locus of potentially semi-stable representations in universal liftings. A group of geometers will investigate several problems which have arisen from the new gauge field theories of mathematical physics. Of particular interest will be the recently conjectured interrelationship between gauge theory and knots in three dimensional space. Mathematicians have long been fascinated by knots, first as a novelty and now with their sights on applications ranging from thermodynamics and particle physics, to supercoiling of DNA. These geometers will contribute to our understanding of the hard analytical side of these theories.